Synthesis, Characterization and Processing of Rigid Polypeptides of Unusual Geometry

Polypeptides will be synthesized as "fuzzy rods" and "star rods". Fuzzy rods have a stiff backbone but many flexible sidechains. They are the largest, most rigid materials known to form liquid crystals in solution and upon heating. This plus a narrow size distribution makes them ideally suited to establish the flow characteristics of molten rods, which is one objective. The versatile sidechain chemistry can also lead to completely new materials. For example, crosslinking of the liquid crystals will yield covalent fuzzy rod networks, leading to oriented polymeric aerogels. Star rods made by attaching several fuzzy rods to a central core exhibit unusual structures in both solution and melt. They are not really rigid, but the arms are nearly so. More uniform arm distribution is a major objective of the research. Star rods will elucidate important features of polymer solutions, such as the approach to semidilute conditions in rods. They will also contribute to the understanding of molten rods. This almost completely ignored macromolecular architecture may also facilitate production of molecular level composites, nonlinear optical materials, biaxially oriented films, and perhaps micromotors, materials with automatic temperature compensation, or optical switches.